International Conference on Orbis Scientiae 1997; Miami Beach, Florida; January 23-26, 1997

Orbis Scientiae 1997, the 25th in a series of conferences on elementary particle physics, astrophysics, and related topics will beheld January 23-26, 1997 in Miami Beach, Florida. The participants will include young researchers and senior scientific leaders. Discussion will cover many topics, including astrophysical and terrestrial searches for evidence of neutrino mass, gravitational waves, the nature of the dark matter in the universe, symmetries in physics, and new approaches to solving quantum field theory problems. The conference will make possible a very important exchange of ideas.